Current Profiling on WOCE Hydrographic Program Pacific Sections

In this project, the PI will obtain measurements of upper ocean velocity structure, using an Acoustic Doppler Current Profiler (ADCP), along five hydrographic lines during 1992-1993, as part of the World Ocean Circulation Experiment (WOCE). The five lines are designated by WOCE as P-13, 16S, 17S, 17E, and 19. P-13 is scheduled for August, 1992, with the remainder starting in October, 1992. The direct velocity measurements will provide reference velocities against which to compare those derived from hydrography, and to determine the small-scale, high-frequency variability. Also proposed is further testing of a lowered ADCP for use on hydrographic casts.